Conference on geometry in dimension 3 and 4

DMS-0102392 - Abstract
Fangyang Zheng

This award provides partial support for active research mathematicians
with limited means of support to attend and participate in the
Conference on geometry in dimension 3 and 4
to be held at the Columbus campus of the Ohio State Univeristy during
Spring 2002.

The list of main speakers includes Gregory Margulis (Yale), John Morgan
(Columbia), Rick Schoen (Stanford), Cliff Taubes (Harvard) and S-T. Yau
(Harvard). The conference will be scheduled for a 3 day weekend, most likely
in late March of 2002. The schedule will be arranged so that
there will be plenty of time for discussions between all the participants.
The full program will appear soon in posters as well as in the web page:

http://www.math.ohio-state.edu